EAGER: Building Language Technologies by Machine Reading Grammars

Recent years have seen incredible advances in natural language processing (NLP) technologies, which now make it possible to perform numerous tasks through, with, or on language data. However, this progress has been limited to the handful of languages for which abundant data are available, because the neural models that facilitate the recent improvements are particularly data hungry. This work suggests that we should move away from the current data-inefficient learning paradigm, and instead attempt to also model languages by relying on the human mode of describing them: the grammar of each language. Put simply, we will aim to incorporate the grammars of languages, as written by linguists and treated as symbolic knowledge bases, in the process of training neural language models.

Specifically, this work will focus on the first step towards this goal, namely extracting the necessary information from grammar descriptions and other linguistic documents. We will explore several alternative modeling approaches, first by relying on retrieval-based models. We will additionally attack the problem through a machine-reading and question-answering framework. Ultimately, the success of these methods will enable the creation of linguistically-informed models, which will in turn facilitate the creation of technologies especially for under-served language communities.